US-Czechoslovakia Cooperative Science Program Management

Dr. Dusan Valachovic, Head of Research, Ministry of Education, Youth and Sport of the Slovak Republic, will visit Washington, D.C. during the week of April 15, 1991, for consultations with representatives of the National Science Foundation. Discussions will focus on cooperative scientific activities under the NSF's Memorandum of Understanding with the Czechoslovak Academy of Sciences. Discussions with other U.S. Government agencies, including the Department of State, are also planned.